Atmosphere and Ocean During TOGA-COARE: Study of Multiscale Interactions Between Convective Systems, Ocean Temperature, and Intraseasonal Oscillations

Abstract ATM-9613772 Flatau, Piotr University of California, San Diego Title: Atmosphere and Ocean During TOGA-COARE: Study of Multiscale Interactions Between Convective Systems, Ocean Temperature, and Intraseasonal Oscillations The research supported by the grant helps in understanding what mechanisms controls the movement of the eastward propagating tropical cloud clusters and precipitation regions. These moving large scale precipitation patterns are some of the pronounced signals in the tropical climate. They are associated with what is know as Maden-Julien Oscillation (MJO) which is an intra seasonal oscillation in the tropical circulation. The research proposed is to study the mutual interaction between the equatorial convection and the Sea Surface Temperature (SST) on intra-seasonal time scales. The hypothesis labeled ASCII to be tested is that the SST gradients generated in response to atmospheric convection, influence the propagation and development of cloud clusters associated with the MJO.